Project PRIME: Promoting Reform In Mathematics Education

The University of Arizona and the school districts of the greater Tucson area over 5 years will inservice 90 elememtary and middle school teachers in three summer institutes totaling six weeks over three summers as well as activities during the school year. Meaningfully integrating the teaching of grades 3-7 mathematics with the use of problem solving andtechnology, teams each composed of 1 middle school teacher and two teachers from a "feeder" elementary school will examine current research, exemplary materials, and develop strategies for implementing current practices in their classrooms.